National Oceanic and Atmospheric Administration Support of the National Center for Atmospheric Research Activities

This Cooperative Support Agreement is to support NCAR activities supported by the National Oceanic and Atmospheric Administration. The activities are consistent with the NCAR mission and objectives as agreed upon by NSF.